Computational Neurobiology at the Cellular Level

This project will start a long term collaboration between the mathematics department and the biology department at the University of Colorado-Boulder. There is a tremendous amount of physiological data on the Mouthner nerve cell that has been collected in the past twenty five years. This project will start the development of a sophisticated mathematical and computational model of this cell that will incorporate the known data. New computational methods will be developed for massively parallel computers to model the
dynamics of this nerve cell. It is intended that this project will start a significant program in computational neuroscience that will become an option for the Ph.D. program in neuroscience at the University of Colorado. In addition, the undergraduate research program that this project grew from will continue to engage undergraduates in research in computational neuroscience. This IGMS project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).